Mathematical Sciences: Low Dimensional Topology and Infinite Group Theory

A striking feature of the development of mathematics in the past decade has been the extent to which the diverse branches of mathematics have interacted, with methods from one branch being used to solve outstanding problems in another. Culler and Shalen's ongoing program for obtaining lower bounds for volumes of hyperbolic manifolds is in large measure an application of qualitative results from topology to quantitative estimates in geometry. Their program for the Property P conjecture would be likely to exploit K-theory and arithmetic geometry in attacking a problem from the topological theory of 3-manifolds. Culler's project of implementing Manin's program by means of Thurston's theory of pleated surfaces is a way of using synthetic hyperbolic geometry to obtain insight into number theory. Finally, Shalen's project involving fundamental groups of 2-complexes lies in the domain of geometric and combinatorial group theory but is motivated in part by the prospect of applications to the study of discrete subgroups of algebraic groups and Kac-Moody groups. Three-dimensional manifolds are the mathematical models of our physical universe. While the cosmological question of whether our universe is finite may be unresolved, it is certain that the study of finite-volume 3-manifolds is of fundamental importance in understanding the physical universe. The quantitative estimates obtained by Culler and Shalen may be regarded as being mathematical analogues of measurements of fundamental physical constants, such as the speed of light. The geometry, as well as the topology, of the universe is important in physics. While the non-euclidean geometries may have been considered curiosities in the nineteenth century, the development of general relativity shows that negatively curved spaces, such as hyperbolic 3-manifolds, are the appropriate models for the universe. Recent mathematical research has shown that they are ubiquitous and mathematically rich as well. The research proposed here is aimed at expanding our understanding of these important spaces.